Adaptive IIR Filtering Using a Stochastic Filter

Etter A stochastic filter consists of a bank of fixed filters with a set of corresponding probabilities. The fixed filters from a basis set of filters for the stochastic filter, and the probabilities determine the specific realization represented by the stochastic filter. This research is investigating the use of a stochastic filter to adaptively model an Infinite Impulse Response (IIR) system. Guidelines for selecting the basic set of filters are being developed in order to represent an adaptive IIR filter and to meet both accuracy and convergence speed constraints.